Topics in Theoretical Particle Physics

Theoretical research in elementary particle physics will focus on (1) The phenomenological and cosmological implications of extra Higgs bosons, (2) The implications for supersymmetry if a Higgs boson were to be discovered within the next two years, (3) Study of whether a potential instability of the standard model ground state is empirically acceptable, and (4) A proposal for a new class of experiments searching for lepton number violation at the Continuous Electron Beam Accelerator Facility. The Higgs bosons represent the one aspect of the weak nuclear force about which essentially nothing is yet known. Yet, they are a very central aspect of our understanding of this force. Thus, study of these bosons is extremely important. Lepton number violation has never been seen, but its existence is predicted by a number of intriguing models, so searching for it is of considerable interest.